Acquisition of Cluster of High Performance Workstations for Research in Thermo-Fluid Sciences

ABSTRACT

Proposal No. CTS-0320621
Principal Investigator: O. Zikanov, University of Michigan- Dearborn

With this Major Research Instrumentation grant, the Department of Mechanical Engineering at the University of Michigan - Dearborn will acquire equipment for newly established computational thermo-fluid laboratory. The central part of the equipment is a Linux-based cluster of high-performance parallel processors. This infrastructure will support the ongoing research effort emphasizing energy-efficient technologies and control of pollutant emission. The areas of particular interest include turbulent flows of liquid metals, combustion, formation and destruction of pollutants in diesel engines, particle dispersion in multi-phase flows, and atmospheric dispersion of pollutants. The new laboratory will also play a major role in enhancing the computational component of the College of Engineering curriculum and facilitate training of graduate and undergraduate students in high-performance computing.